Field Equipment for Undergraduate Hydrogeological Program

Montana College of Mineral Science and Technology will purchase a data logger, six water level recorders and logger, a well monitoring system, a water quality monitor, a ground water flow meter, eight conductivity meters, a generator, a stratigraphic gamma probe, a normal resistivity probe, two wellhead temperature probes, a permeameter, two air-lift samplers, a gas chromatograph and an organic vapor detector. This equipment will be used to improve instruction in a summer field course in hydrogeology. Students will receive "hands-on" training in well construction, aquifer testing, well development, and water quality monitoring. Montana College of Mineral Science and Technology will match the NSF grant with an equal amount of funds, and also will provide funds for well drilling and construction.